Elastodynamic Event Sequences on Rough Faults

Geometrical and material heterogeneities in faults have long been viewed as
a crucial feature affecting earthquake behavior. More recently, the role of
stress heterogeneities has begun to be recognized as a potentially
central feature,
particularly with the demonstration that stress heterogeneities alone
already can produce a remarkably rich and complex set of earthquake-like
behaviors on uniform planar faults. What is missing is an understanding of how
the two types of heterogeneities, the static geometrical and material
heterogeneities, and the dynamic stress heterogeneities, might combine
and interact to produce even more realistic behavior.

This research seeks to further develop a line of modeling which
extends elastodynamic simulations to nonplanar geometries.
Specifically, the aim is to develop simulations of rough fault geometries.
By studying long sequences of events on the faults, the dynamical attractor
develops, and thus the interaction of stress heterogeneities with any
geometrical heterogeneities can be examined.
As well as developing the technology, we are applying the model
to a set of observations, including normal stress effects, rupture
initiation and termination, and aftershocks. These applications
have relevance to understanding friction better, improving long term
hazard estimation based on segmentation, and short term hazard estimation
based on aftershocks.